Exact Constraint Method for Molecular Dynamics

9361843 Chun This Small Business Innovation Research (SBIR) Phase I project is in the general area of computational chemistry.The goal of the research is to develop an algorithm which recursively finds an exact solution to Lagrange multipliers. Simple unconstrained molecular dynamics simulations need to use small steps to track the high frequency dynamics that result from stiff springs representing chemical bonds and angles. To increase the step size, constraints are often introduced in the particle equations by including a term representing the constraint gradient multiplied by a Lagrange multiplier. While rigorous, this method introduces new computational overheads, which has led to the approximate and not entirely satisfactory SHAKE algorithm. SHAKE works well with bonds and angles, but fails to generalize arbitrary constraints. In this feasibility research, an algorithm, called EXACT which represents an exact constraint technique, will be developed which will handle open and closed loops, is highly efficient, can generalize arbitrary constraints and will be well-suited for parallel implementation. %%% Computationally efficient molecular dynamics algorithms are an enabling technology to deal with practical problems such as rational drug design and design of advanced polymer composites. The EXACT algorithm will be directly useful for real-world applications and, if successful, by the end of Phase II will be incorporated into various commercial software systems for dissemination to the computational chemistry community. ***